Interactions Among Climate, Land Use, Ecosystem Services and Society

This Research Infrastructure Improvement (RII) Award focuses on the terrestrial and
aquatic ecosystem services in New Hampshire and their interactions with short and long
term changes in climate and land use. The project will investigate the
interdependence of ecosystems, climate change, and impacts on society. The work is
scientifically significant and regionally relevant as ecosystem services are central to the
well-being of New Hampshire residents and to the region's economy. The project
brings together research universities, 2- and 4-year colleges, small businesses, local
government, and non-profit organizations to address key issues related to ecosystems
research, education, and workforce development in the state.

Intellectual Merit
This RII project will examine how climate variability and climate change affect and are
affected by changes in land use, supply and demand balances of water resources, and
dynamics of nutrients in New Hampshire's streams and rivers. The research program
will build a statewide system of terrestrial and aquatic sensors as well as use aircraft
remote sensing and satellite imagery. This infrastructure will provide information on
forest structure, soil emission, water temperature, and nutrient levels with high spatial
and temporal resolution than is currently possible. The new data will be used in
climate, hydrological, and ecosystem models. The integration of observational and
modeling work on forest and water ecosystems will lead the way to examine future
scenarios of climate change and the potential impacts on ecosystem function. The
project will survey public perceptions of climate change and land use and broadly
disseminate the analyzed results to improve communication among the public, policy
makers, and an interdisciplinary team of scientists.

Broader Impacts
The project has a suite of activities that are well-integrated with research to promote
education at all levels. The implementation of the research project will contribute to an
improved understanding of the historical effects of climate, land use, and demographic
changes. In addition, improved communication among researchers, policy makers, and
the public is expected to enable informed decision-making by all stakeholders.
Workforce development initiatives under this project include incentives to transfer from
2-year to 4-year schools, and summer institutes for K-12 teachers, 2-year college
faculty, and 4-H volunteers to be trained in the use of terrestrial and aquatic sensors,
data collection methods and participation in research. The project includes distance
learning programs and plans for web-based dissemination of research results.